Connections to NSFNet: A Multicampus Network Demonstration

Connectivity will link this medical school's major teaching hospital (Barnes with 1743 beds) and several other units within the medical center into a single "seamless" TCP/IP array of Internet resources. The likely benefits of the proposed connections are great at this premier research institution. The local infrastructure is very strong, and the network expertise is excellent. The PI is a leader in medical information research and is in a position to promote connectivity; substantial outcomes are likely to result.